Mathematical Sciences: Conference on Coding Theory, Design Theory and Group Theory; September 13-18, 1990 in Burlington, Vermont

This award will help to fund a conference entitled Conference on Coding Theory, Design Theory, and Group Theory. The conference will be held from September 13 through September 18, 1990 on the campus of the University of Vermont in Burlington, Vermont. This conference will bring together the leading mathematical scientists in the fields mentioned in the title to discuss mathematics at the forefront of these subjects with a wide group of participants. These fields have frequently benefitted from a cross-fertilization of ideas and techniques, so the effect of this interdisciplinary conference should lead to new advances in the respective fields. The keynote speakers are J. Conway, J. Thompson, and S. Praeger.